CAREER: Understanding the mechanisms of irradiation assisted stress corrosion cracking using in situ and operando X-ray imaging analysis

NON-TECHNICAL SUMMARY

Materials play a crucial role in human development, with different ages defined by the key materials of those times. However, material failure due to extreme environments such as high temperatures, mechanical stress, corrosive media, and irradiation have raised significant concerns across various applications. Therefore, there is a growing interest in understanding how materials fail under a combination of these factors. One such area is irradiation-assisted stress corrosion cracking (IASCC), which affects the long-term use of materials in nuclear reactors. Despite intense research focused on IASCC since the 1960s, understanding remains limited due to the challenges of observing this process in real time. Therefore, this research is using stainless steel, a model alloy commonly employed in reactor pressure vessels, to address several primary goals: (i) determining whether irradiation accelerates or slows down stress corrosion cracking, given the conflicting results in existing literature; (ii) isolating the effects of defects such as dislocations, grain boundaries, and stacking faults; as well as (iii) understanding the impact of localized deformation during IASCC.

Undergraduate students will be trained through sample fabrication using state of the art lithographic techniques and building small sized nuclear reactor models that can fit in varying X-ray imaging beamlines. This project is also advancing science through outreach to developing countries where access to resources for STEM education and research are limited. Lastly, a fundamental understanding of IASCC is increasing our potential to transform the design of alloys that resist both irradiation and corrosion across a variety of uses including but not limited to next-generation nuclear reactors as well as turbine engines, for aerospace and land-based power generation.

TECHNICAL SUMMARY
Structural materials such as stainless steels and nickel-based alloys, which are widely used in industrial pressure vessels and nuclear reactors, operate under coupled extreme environments. They are regularly exposed to elevated temperatures, irradiation, and mechanical stresses, within corrosive media that include corrosion, radiolysis, and hydriding conditions. These harsh conditions pose critical challenges, necessitating a fundamental understanding of degradation mechanisms to extend the operational life of current light water reactors and to enable the design of next-generation materials with enhanced radiation tolerance and high-temperature performance. The degradation of core reactor components remains a key issue for global electric power utilities, affecting approximately 17% of worldwide electricity generation. Although irradiation-assisted stress corrosion cracking (IASCC) has been studied since the 1960s, the field’s understanding of the fundamental mechanisms underlying IASCC remain limited due to the complex interplay of intrinsic material properties and extrinsic environmental stressors. This project is deconvoluting these competing mechanisms through the integration of high-resolution X-ray imaging and diffraction techniques used in tandem with custom-designed electrochemical flow cells that replicate aspects of reactor environments. These tools are enabling real time, in situ monitoring of material responses to irradiation, high temperatures and corrosive environments (e.g. corrosion, hydriding, and radiolysis). The mechanistic insights gained are elucidating the site-specific initiation and propagation of cracks, providing a foundation for predictive models while also guiding the development of advanced structural materials for extreme environments.

This research program is also placing a strong emphasis on outreach and education by training undergraduate students in radiation materials science and advanced lithographic techniques, preparing them for careers in nuclear energy, materials science and/or semiconductor industries. Additionally, this project includes STEM outreach initiatives to underdeveloped countries thereby bringing radiation science to new geographic spaces. Overall, these initiatives are providing useful information regarding nuclear energy and STEM fields to the next generation of learners by providing resources that empower students to pursue futures in nuclear engineering and materials science both in the U.S. and abroad.